ITR/SY: Features, Components, and Legacy Systems

Proposal Number: 0220166
Title: ITR/SY Features, Components, and Legacy Systems
PI: George T. Heineman, Computer Science Department, WPI

A legacy system is any software system that is in use and must evolve
to meet changing conditions. These systems must be re-engineered
because over time, the ability to evolve the system decreases with
each successive maintenance. The proposed research combines the
concepts of features and software components in a novel way to
extract feature-based software components from a legacy
system. First, the features of the target legacy system are elicited
and using existing code profiling tools, the code associated with
these features is identified. This task is made possible by the
regression test suite that many legacy systems already have to ensure
proper functioning as the system is upgraded. Second, software
components are refactored from the legacy system. In short, the data
generated by execution traces is analyzed for evolution purposes.
The research will provides a viable long-term strategy for an
organization to incrementally modernize its software code base. A
reengineering methodology will be defined and applied. A
corresponding cost/savings model will be developed based upon
preliminary success with the legacy system for a financial
company. The methodology will be packaged and disseminated to ensure
other organizations with legacy systems can easily benefit from the
results of this research.